Algebraic and topological combinatorics of posets

The investigator will develop and apply combinatorial methods for
studying the topological structure of simplicial complexes and cell
complexes arising in combinatorics and related fields. A major focus
is to deal with complexes of more general topological type than many of
the prevalent methods within combinatorics were designed to handle, e.g.
in new techniques for proving connectivity lower bounds. The
investigator will continue her ongoing effort to develop techniques for
constructing discrete Morse functions with few critical cells, with
emphasis on order complexes of partially ordered sets and on related
free resolutions (both for monomial ideals, and also for resolving a
residue field over a monomial or toric ring). Substantial improvement,
at least for order complexes, will likely require better understanding
of the very rich structure governing gradient paths between critical
cells. In related work, she also plans to study Poincare' series for
free resolutions over monomial and toric rings, for instance trying to
better understand for toric rings which such Poincare' series will be
rational. She also intends to study modular elements in (non-geometric)
lattices and to try to generalize lexicographic shellability to skeleta
of complexes, motivated again by potential applications to constructing
small free resolutions and also to bounding graph chromatic number (via
better understanding of characteristic polynomial).

Topological combinatorics, and in particular connectivity lower bounds,
have in the past been used to determine and verify complexity theory
lower bounds on the running time for certain types of algorithms, to
deduce results in commutative algebra about relations among polynomials
via the theory of free resolutions, and also to give lower bounds on the
number of colors needed to color the vertices of a graph in such a
way that no two vertices sharing an edge are the same color. The
investigator is interested in further developing combinatorial
techniques (such as a recently introduced discrete version of Morse
theory) for studying topological structure, letting potential
applications guide the way. Morse theory is a classical theory which
analyzes the topological structure of an object by viewing the object
progressively from bottom to top, keeping track of essential data at
those moments in time where fundamental changes in structure take
place; recently Robin Forman introduced a discrete version of this
seemingly inherently continuous notion. One of the investigator's
major focuses is to develop to practical machinery for making this
theoretically very powerful tool convenient to use on real (and in many cases very complex) examples.